Pan-American Institute of Science and Technology

This planning proposal requests funds for the planning phase of the Pan-American Institute of Science and Technology (PAIST). The PAIST seeks to create effective pathways to graduate studies for young Latinos in the U.S. through the participation of Latin-American scientists in research collaborations and outreach activities. The Pan-American Institute of Science and Technology (PAIST) will set up and coordinate research in science and technology between faculty members, young scientists and students at the University of Houston, the University of Houston-Downtown and other participating institutions and their counterparts in Latin America. The PAIST will create a unique continuum of opportunities ? pathways ? for young Latinos to be successful through their Ph.D. studies.
This grant will be used for travel, mini-workshops and related expenses. The NSF seed money contribution will have an important leveraging effect at the University of Houston and in the local community.